Proton-Antiproton Total and Elastic Cross-Sections at Very High Energies

This grant supports research in particle physics by a faculty member and a graduate student. Its goal is to extend analysis of data on high-energy proton-antiproton elastic scattering and total cross sections obtained at the Fermilab Tevatron collider. Improved values of forward-scattering amplitudes will be obtained.